Heat, Mass, and Momentum Transport During Drop Formation andRelease

This research effort deals with the heat and mass transfer occurring in and around liquid drops when they are released in another liquid of a higher density. The work will be based on a new experimental technique which is capable of measuring the heat transfer coefficient of both sides of the liquid-liquid interface.